Conference: Doctoral Consortium and Student-Author Conference Travel for PETRA 2024

This award will support the 12 student researchers participating in the Doctoral Consortium to be held in conjunction with the 2024 International Conference on Pervasive Technologies Related to Assistive Environments (PETRA 2024), which will take place June 26-28, 2024 in Crete, Greece. The PETRA mission is to promote interdisciplinary research on ways to use pervasive ambient intelligent environments to improve quality of life and enhance human performance with greater capabilities. The conference covers an array of topics in computational science, psychology, nursing, rehabilitation, artificial intelligence, computer vision, robotics, computer engineering, user interfaces, neuroscience, and many other areas. This year's conference has special focus areas on assistive technologies and responsible AI in the context of pervasive computing. The conference organizers will make a concerted effort to attract participants who are women, members of under-represented minorities, persons with disabilities, and those whose work focuses on challenges related to diversity.

The PETRA 2024 Doctoral Consortium will afford student authors of papers accepted for presentation at the conference a unique opportunity to gain additional exposure for their innovative ideas and connect to an academic network both among themselves and with senior colleagues. The Doctoral Consortium will consist of special sessions at the beginning, during, and at the end of the conference that involve close interactions with mentors around developing and publishing their work, as well as a chance to present posters to the wider conference. Students will be selected based on financial need, relevance to PETRA research, and creating a diverse consortium in terms of personal, disciplinary, and institutional backgrounds.